SGER: The Sensitivity of XANES Spectroscopy to Protein Folding, Misfoding and Aggregation

This SGER provides support for the postdoctoral research activities of an associate of the PI to conduct several experiments designed to explore the potential for the use of x-ray absorption near-edge structure (XANES) in the study of protein misfolding and aggregation. The team will pursue two directions, an analysis of crystalline versus non-crystalline proteins and alpha-helical versus beta-pleated conformations in dissimilar proteins.